Multiple ergodic averages and combinatorics

The research proposed lies in the area of ergodic theory and has
several potential applications in combinatorics.
In ergodic theory, the investigator plans to carry out an
in depth analysis of the limiting behavior of multiple ergodic
averages along various integer sequences, including polynomial
sequences, sequences related to the prime numbers, Hardy
sequences, and random non-lacunary sequences. The tools to be used
include recent advances in the theory of characteristic factors
and the theory of nilpotent Lie groups. The combinatorial
implications are related to problems of finding (and in some cases
``counting'') certain configurations that occur within every subset of
the integers with positive density, thus obtaining several far
reaching extensions of Szemeredi's theorem on arithmetic
progressions. Furthermore, it is plausible that the same
configurations occur within the set of primes.

The project studies the long term behavior of physical and
mathematical systems, evolving over time, whose dynamics is too
complicated to be followed in microscopic detail. Ergodic theory
introduces mathematical tools for understanding the asymptotic and
average behavior of such systems. These tools have also come to
play an important role in studying complicated number theoretic
and combinatorial structures and the proposed project seeks to
bring new light on these areas of research.